Quantum Coherence

We plan to continue and expand our investigations of the fundamental aspects of quantum theory, with a view towards experimental applications on the one hand and obtaining theoretical insights which may be helpful in modifying the present physical theories on the other hand.
We shall try to (1) obtain new quantum effects with experimental consequences, (2) resolve paradoxes arising from effects we have previously discovered, which may lead to new effects, (3) obtain greater insight into the quantum measurement problem, particularly its possible relation to quantum gravity, and (4) investigate quantum geometry, in particular its relation to supersymmetry.